Ecological Structure of Mammalian Faunas in Relation to Climate

9318304 Badgley This research is a continuation of a study of the influence of climate on the ecological structure of mammal communities as represented by size and trophic structure. Using existing data, this study will encompass analyses of mammal faunas on five continents. The primary research questions include evaluating the correlation among size, trophic specialization, and phylogenetic affiliation among continental faunas and among assemblages from different continents. The study will document the response of mammal assemblages to changing climatic conditions. Also, phylogenetic constraints will be incorporated into an understanding of size and trophic structure of different faunal assemblages. %%% The proposed research represents the first detailed analysis of relationships between climatic conditions and ecological structure of mammal assemblages on a continental and global scale. Results from this research will lead to a clearer understanding of the role of climate in shaping ecological communities, and to a predictive model for mammalian faunal change under scenarios of future climate change. ***